SGER: Community Consultation on Economic Security, Aging, and Subsistence in Holman, NT, Canada

ABSTRACT

This is a SGER to support the PI's proposal to explore the possibility of collaborating with the residents of Holman, NT, Canada on emerging research on economic security and aging. The project will provide learning opportunities to the Inuit who are an underrepresented group in the sciences. In addition, the project exemplifies the OPP/NSF "Principles for the Conduct of Research in the Arctic," which guides researchers toward collaborating with communities in research design and implementation.